Chain Structure and Counterion Condensation in Solutions of Flexible Polyelectrolyte Chains

9619277 Liu The principal objective in this grant is to develop theoretical understanding of polyelectrolytes. Specifically there are two related components of this project: One involves further development of a variational formalism to study the chain structure of a polyelectrolyte solution at arbitrary concentrations. This is in contrast to past work on the polyelectrolyte chain structure which has been limited to a single chain, in the infinite dilution limit. The second part is an application of this formalism to study counterion condensation. The principal advantage of this theory is that it can treat fluctuating, intrinsically flexible chains and it does not require restriction to fixed model geometries such as line charges and cylinders. This work is expected to resolve some of the most controversial questions in the field of polyelectrolyte solutions and also pave the way for similar studies of even more complex systems such as charged self-assembled surfactant systems, polyelectrolyte complexes, and polyelectrolyte/membrane complexes. %%% In this grant to a young female researcher in theoretical polymer science, there is support to study properties of polyelectrolytes. These are the polymers that are soluble in water, generally found everywhere and especially relevant to environmentally-benign processing. The work in this project addresses some long standing questions in the structure of charged polymers and their response to further charging at fairly high levels. This work uses sophisticated, state-of-the-art, theoretical machinery and proposes to further build on the PI's recent development of necessary mathematical techniques. ***